III: Workshop support for meeting on algorithms for modern massive data sets, MMDS 2010

The proposal is a request for funds to support the biennial MMDS
meetings on Algorithms for Modern Massive Data Sets. The goals
of these meetings are: (1) to explore novel techniques for
modeling and analyzing massive, high-dimensional, and
nonlinearly-structured scientific and internet data sets; and
(2) to bring together computer scientists, statisticians,
mathematicians, and data analysis practitioners to promote
cross-fertilization of ideas. The meetings will occur in the
wake of two related meetings in 2006 and 2008 that addressed
similar topics. Both MMDS 2006 and MMDS 2008 were an enormous
interdisciplinary success, and they clearly highlighted the
need for a regular meeting forum to bring together junior and
senior researchers from a range of backgrounds to address the
challenging foundational problems that will be faced in upcoming
years as increasingly large and complex data sets are generated
in a wide range of application domains. The proposed meetings
will capitalize on these past successes and extend the MMDS
series into a more regular series of meetings to address
algorithmic, statistical, and computational aspects of modern
massive data set analysis.

The topics covered by MMDS address fundamental algorithmic
questions underlying much of the recent work in large-scale data
analysis. In addition, topics of interest at MMDS include data
problems ranging from better search and ranking at internet
sites to improved methods for extracting structure in genetics
applications to analyzing biomedical images for improved disease
detection. Progress on these fronts will be fueled by junior
researchers as well as researchers from a wide range of
application areas. Thus, every effort was be made to include
junior researchers, including women and minorities, at past
meetings and to disseminate the information presented at the
meetings to people who were not able to attend. This will be
continued at future meetings. For more information, please see
the meeting webpage: http://mmds.stanford.edu/